Theory of Atomic, Molecular and Optical Processes

9512100 Chu Nonperturbative theoretical and computational methods will be developed and applied to the dynamics of atoms in external electric and magnetic fields. The systems studied are nonseparable and provide interesting examples of the manifestation of regular and chaotic behavior in atomic and molecular physics. ***